Collaborative Research: SHF: MADE: Memory-centric Architectures for Distributed Edge Intelligence

Artificial intelligence is increasingly needed in small devices that must sense, decide, and respond close to where data are produced, such as wearable health monitors, environmental sensors, infrastructure monitoring platforms, and secure embedded technologies. However, many current approaches rely on energy-intensive computation and frequent data movement, making them difficult to deploy in devices that must operate for long periods with limited power, compact size, and dependable performance. This project develops a new hardware foundation for energy-efficient and reliable edge intelligence by moving computation closer to memory and by using decision-focused data representations that reduce the need for costly numerical operations. The research aims to enable low-power artificial intelligence for always-on and autonomous sensing applications while reducing energy consumption, improving operational reliability, and limiting unnecessary data transfers that may increase security and privacy risks. These advances can support more sustainable and resilient intelligent technologies for healthcare, environmental monitoring, infrastructure safety, and secure computing. The project will also train graduate and undergraduate students in cross-layer hardware and artificial intelligence design, introduce younger students to energy-efficient computing concepts through outreach activities, and release research artifacts for use by the broader research and education communities.

This project investigates memory-centric architectures for distributed edge intelligence. The goal is to determine how reliable artificial intelligence inference can be performed using distributed representations, accumulation, and comparison instead of dense multiply-and-accumulate arithmetic. This research has three activities. First, the project will develop encoding and accumulation methods that convert sensor data into redundant representations for low-cost inference. Second, it will design compute-in-memory and near-sensor hardware architectures that implement these methods across complementary memory and circuit substrates while lowering data movement and peripheral overhead. Third, it will measure system robustness under quantization, noise, voltage scaling, device variation, and hardware faults. Hyperdimensional computing and bitstream-based data representation will be the primary tools to study these principles. An open-source simulation framework will support comparisons of energy, latency, accuracy, and robustness. The project is expected to contribute new hardware abstractions, design rules, and evaluation tools for sustainable artificial intelligence systems at the edge.